State-to-State Photochemistry

The major thrust of this project in the physical chemistry program concerns state-to-state dynamics of photochemical reactions involving simple, easily spectroscopically characterized chemical species. The research seeks to answer the question of how the initial energy of reactant influence the dynamics and eventual outcome of chemical events. The proposed experimental approach consists of preparing gas phase reactants with well defined nonequilibrium properties by polarized laser photoselection in a cold supersonic jet. The quantum state of the nascent products will be completely characterized by laser excitation, polarization and Doppler spectroscopic techniques. Results of such experiments provide stringent tests for many of the current theories and hypotheses of reaction dynamics.